CAREER: Toward Robust Multi-Vehicle Multi-Scalar Underwater Robotic Navigation - A Career Development Plan

The objective of this career development plan is to investigate new
probabilistic methods for simultaneous localization and mapping (SLAM)
that will improve the precision and scale of robotic mapping in ocean
science. The proposed methodology will scale to multiple
heterogeneous vehicles, allow for extended exploration over long time
durations and over multiple spatial scales, and be robust to the
challenging limitations of the underwater environment. Many land/air
SLAM methods are largely inapplicable underwater because of (a) a lack
of point features of unstructured seafloor, and (b) the rapid
attenuation of electromagnetic, optical, and acoustic radiation in
comparison to land, air, and space. The proposed multi-vehicle
multi-scalar SLAM navigation framework overcomes these challenges by
fusing information from three disparate technologies: 1) real-time
vision-based seafloor navigation, 2) inertial navigation systems, and
3) acoustic modem-based communication, to create a flexible navigation
framework that allows for inter-nodal ranging and data sharing among
heterogeneous nodes. By leveraging the perception and localization
capability of neighboring vehicles via a (low-bandwidth) distributed
estimation framework, the proposed methodology will provide a
cooperative navigation framework that will yield improved precision
and scale in underwater robotic mapping for ocean science.